CAUSEway: Workshops for Navigating the Terrain of Undergraduate Statistics

The Consortium for the Advancement of Undergraduate Statistics Education (CAUSE) is holding a series of professional development workshops over a four-year period in undergraduate statistics education. These workshops are accompanied by corresponding follow-up activities. The purpose of the workshops and activities is to help colleges and universities develop statistics courses and programs, and to have a significant impact on infusing the most current successful innovations in statistical methods, practice, and pedagogy into the teaching of statistics. The three target groups are: teachers of undergraduate introductory statistics courses; mathematics and mathematics education faculty who teach statistics content to pre-service K-12 mathematics teachers; and departments and statisticians who have or potentially can have undergraduate statistics programs.